Automated Robotic Cell

The purpose of this project is to establish a real life fully automated robotic cell around the currently available CNC machines and the other equipment purchased under the previous ILI grant. The completed cell will consist of three robots (largest one to be purchased), two CNC machines (mill and lathe, both available), a conveyor, a storage facility, and a programmable logic controller. Available simulation package will be incorporated into the cell as a production control prediction device and also to animate the machining activity. A total of four personal computers (two to be purchased) will be used in operation of various items and input/output communications among the items and the logic controller.